Diachronic Generative Syntax Conference, College Park, Maryland, May 21-23, 2000

The goal of this meeting is to provide a forum for the discussion of
recent work on historical change in syntactic systems in the context of
generative grammar. Historical change constitutes a particular form of
variation. One can find cases where grammars vary only minimally: there
may be just a single difference in two abstract systems. If one can
isolate points of variation in this way, one can then ask why the new
system should have emerged in children at a certain point in time, and
this may illuminate the way in which children acquire their syntactic
capacities. Within this perspective, the study of language change is
fused with work on language variation and the acquisition of language.

The meeting will focus on the syntactic effects of changes in
inflectional systems, for example examining the effects of the loss of
morphological case systems. It is an old intuition that languages with
rich inflection have a different kind of syntax from languages with poor
inflection. Now work within the Minimalist Program posits a tight
connection between syntactic operations and morphological features:
movement of any element (head or phrasal category) to any functional
position takes place only when required to check morphological features.
This raises the question of how strong/weak distinctions match
morphological properties. This question will constitute the central focus
of the meeting.

In summary, the meeting will address a major question in syntactic theory and
extend the dialogue between historical linguists and acquisitionists, on
the assumption that their work is mutually enlightening.